Cankdeska Cikana STEM Planning Project

The focus of this planning effort is not only the assessment of STEM offerings,
but also, the development of a strategic plan specific to the STEM courses. It will
include the examination of expansions needed to maximize student opportunity and
increase success in current bottleneck courses. Further, the college needs to identify
additional course offerings and physical and human resource necessary to add to those.
The long term impact of this project is expected to provide significant increases in
three areas: course completions in the STEM courses; graduations; and transfers to four
year schools.
The college's major focus will be on the development of a strategic plan which
emphasizes the inclusion of the Dakota culture. Further, the college has historically
developed programs which are responsive to the needs of students. This prior experience
will be applied to the STEM effort with additional materials included from reviews of
other Tribal college STEM programs.